1998 Gordon Research Conference on Multiphoton Processes

Support is provided for students and postdoctorals to attend the 1998 Gordon Research Conference on Multiphoton Processes in New London, New Hampshire.